Epitaxy, Structure, Stress, and Plastic Behavior in High Strength Metal Multilayers

The aim of the proposal is to explore the potential of multilayer structures by studying their synthesis by sputter deposition with in-situ characterization as well as measurement of their mechanical properties. Grazing incidence X-ray scattering is used to examine the surface and interfaces during deposition. The films are synthesized with alternating face-centered cubic and body-centered cubic metal pairs. These films offer the opportunity to study strengthening by finely spaced obstacles that inhibit dislocation motion and relating this strengthening to film epitaxy, film thickness and misfit strains. A strength in the program is the use of an in-situ analysis technique, which could lead to new understanding of film growth.